Fossil Sharks' Teeth: Indicators of the Tempo of Evolution-ary Change

This proposal aims to investigate the extent to which isolated teeth from sharks of the genus Carcharhinus exhibit species-specific traits. This data set, once established, will serve as an essential reference against which fossil teeth can be compared in the future.